Molecular Biology Laboratory

A comprehensive molecular biology laboratory facility enhances an undergraduate molecular biology course, a molecular biology course for in-service high school teachers, and genetics and introductory biology courses. There is great student independence in the laboratory, and a focused approach to gene isolation and sequencing.